SBIR Phase I: High-Performance Oxygen Electroreduction Catalysts for Fuel Cells

This Small Business Innovation Research (SBIR) Phase I project seeks to reduce the cost of fuel
cell electrodes by preparing a novel class of oxygen reduction electrocatalysts featuring
high activity, low cost, and greater longevity. The basis of this catalyst is a novel
multimetallic catalyst. The result of this effort will be an electrocatalyst suitable for use
in the fuel cells envisoned for next generation vehicles (NGVs), as well as fixed fuel cells
for commercial power generation.

This research will advance the understanding of electrocatalysis, extending the world of
known catalytic materials, and providing further opportunities for research. This will
also provide opportunities for teaching, training, and learning. Additionally, the
technological fruits of the project will benefit society by reducing pollution from fossil fuel
sources. Finally, society will benefit economically from the elimination of costly
platinum from fuel cells.